Completion of the Curriculum Revision for Calculus Based Introductory Undergraduate Physics Course

Loras College is revising its curriculum for the calculus based introductory physics course. The model for the calculus-based course has the following highlighted features: (1) incorporation of MBL components from the Dickinson College Workshop Physics Project, (2) IEEE-488 based interface experiments in electricity, magnetism and electronics, (3) ten spreadsheet study modules emphasizing contemporary and ocmputational topics, and (4) integrated tutorial, communications and data analysis exercises. The addition of five MAC IIcx systems with Microsoft Works, six IEEE based Keithley stations, a networked Laser writer, and five copies of SuperCalc3 spreadsheet complement the Apple IIe systems on hand and allow implementation of courseware already developed. Using locally generated funding and personal time, a complete Laboratory Manual, interface experiments, and ten spreadsheet modules have been developed by the Loras College Physics Department. The present project permits immediate implementation, further classs testing, and publication of new materials as called for in Phase III of the Introductory University Physics Project. One IBM Ps/2 system will permit the development of transportable versions of the spreadsheet modules and one copy of Mathematica will permit the development of the next aspect of the curriculum revision, incorporation of math solvers in the syllabus of the calculus based course. The college is matching the award with an equal amount of funds.//